Upgrading the Computer Laboratory for Interactive Analysis and Display of Meteorological Data

The State University of New York College at Brockport is requesting support to upgrade its current computer facilities. The funds will be used to upgrade SUNY current file server and replace existing SUN LX workstations. The present equipment will not satisfy the demands of the faculty or the students due outdated software. With the new equipment, students and faculty can improve their research activities and the Earth Sciences department can improve its role as a Unidata archival and relay site. Furthermore, the upgrades will allow a full integration of Unidata supported meteorological analysis and display software packages into SUNY's meteorology curriculum.